Accountability of Federally-Funded Research

OIA-0073616

This Committee on Science, Engineering, and Public Policy (COSEPUP) study on Accountability of Federally-Funded Research will assist federal agencies in crafting plans and reports that are responsive to the Government Performance and Results Act (GPRA), Office of Management and Budget (OMB) Guidance, and agency missions. The study will undertake independent assessments via case studies of the strategic and performance plans federal agencies have developed and of the responsiveness of their performance reports to GPRA.

This case study approach of agency responses to GPRA from strategic plan through performance plan and performance report will be valuable to agencies in providing a bridge between congressional expectations and agency capabilities. The case study approach will allow for the special circumstances of individual agencies-both their missions and how they implement them.